U.S.-France Cooperative Research: Thermodynamics Propertiesof Mantle Minerals

This award will support collaborative research in geology between Dr. Anne Hofmeister, University of California at Davis, and Dr. Pascal Richet, Institut de Physique du Globe, University of Paris VI, France. The objective of the project is to improve thermodynamic calculations for mantle-minerals based on spectroscopy. One of the fundamental problems in geophysics concerns the deduction of the thermal character of the Earth's interior by comparing seismic measurements to physical properties of minerals measured in the laboratory. Progress is severely impeded by infeasibility of performing calorimetry at pressure. In order to overcome this difficulty, predictions of thermodynamic properties based on spectroscopy can be used. Currently, the calculations are very accurate to 1000 K, but calorimetric data above such temperature is insufficient to evaluate the investigators' current models. In this project they propose to perform calorimetry and thermal expansivity at high temperatures and compressibility experiments at room temperature (in Paris) and spectroscopic measurements at temperature and pressure (at Davis) on selected mineral samples. Direct comparison will enable the researchers to establish the accuracy of Kieffer's thermo- dynamic model at high temperatures. Their goal is to refine the model, so that it is reliable under mantle conditions. This project will benefit from the complementary expertise of the two investigators in modelling thermodynamic properties through spectroscopy. The results of this study should improve understanding of the thermal state of the Earth's interior.